Singularity Behavior in Some Geometric Variational Problems Sciences

Abstract for NSF Proposal DMS-0306294, "Singularity Behavior in
Some Geometric Variational Problems", Robert Hardt, P.I.

This project lies in the area of geometric variational calculus,
treating the behavior of singularities and energy concentration
for various optimal or stationary functions, fields, or geometric
structures subject to geometric or analytical constraints.
Specified investigations focus on the relation between energy and
topological obstruction in mappings between manifolds, liquid
crystal materials, improper slicing of polynomial varieties,
transport problems, and the regularity of relaxed energy
minimizers. In various higher dimensional cases, energy
concentration of limits of smooth mappings may occur along sets
of infinite measure and is related to homotopically nontrivial
mappings of spaces. This concentration behavior corresponding to
any rational homotopy invariant of the target mapping can now be
described. Singularities in liquid crystal materials will be also
studied in several contexts. The theories of improper
intersections of polynomial zero sets from algebraic geometry
will be investigated to understand related behavior in analysis
and partial differential equations. Combined transport systems
such as occurs in postal routes, the circulatory system, and
plant root systems can be described variationally with recently
discovered geometric structures.

Underlying many physical phenomena is a least energy principle
whereby certain configurations or fields or geometric shape are
distinguished by their property of having less energy or area than
competing objects. The external constraints often lead to
singularities, which are characterized by rapid changes of
structure occurring in very small spatial regions. For example,
one observes dislocation faults in solids under stress, domain
walls in magnetized materials, liquid edges and corners in soap
films, and point, curve, and surface defects in various liquid
crystal materials. We deal with new mathematical structures and
theories necessary to explain and predict such phenomena. In
these problems, the theoretical studies of pure mathematics, the
numerical computational studies of applied mathematics, and the
phenomenological studies from observation and experiment all
benefit each other and all have a crucial scientific role. The
present proposed research has many problems motivated by and
applicable to science and engineering. The new geometric
variational tools are not presently well-known in the broader
scientific community, and communication of these mathematical
topics and techniques will be very useful.